Asymmetric Synthesis with Boronic Esters

This research is being funded by the Organic Synthesis Chemistry Program. Dr. Matteson is developing new synthetic tools based upon the boron atom. This technique provides an extremely powerful way of controlling the relative stereochemistry of parts of a complex molecule. It will be very useful in preparing extremely pure pheromones needed in controlling insects. Directed asymmetric synthesis based on boronic ester chemistry has been found to be applicable to a wide variety of problems in natural product synthesis, and the proposed project will extend our basic knowledge of boronic ester chemistry and extend its applicability to new types of synthetic problems. To demonstrate and refine the features of the method that are already known, synthesisof several chiral insect pheromones will be undertaken. These provide significant but realistic synthetic challenges which will demonstrate some of the advantages of the approach, which is now theoretically capable of providing >1000:1 chiral isomer ratios of crude products The unequivocal stereochemistry and ability to produce all stereoisomers in highly pure form provided by this method should be useful for proving configurations of as yet unknown pheromones. New boronic ester chemistry will be investigated which has as its goal the connection of boronic esters produced via this chemistry with molecular fragments which may be obtained by other means, so that this chemistry can be applied more readily to the synthesis of highly complex natural products.